NYSERNet Regional Network (Phase II)

NYSERNET, Inc. is a not-for-profit, New York State corporation founded expressly to advance science, engineering, technology and education by providing access to information and improving collaboration among research and educational institutions. The network it has established connects academia, government labs and industrial research centers to one another and to the NSFNET Backbone - NSFNET through a high speed (56,000 - 1.5 million bits per second) data computer network. The NYSERNET corporation was established cooperatively with Cornell University and other founding institutions in 1986. It now comprises over 26 instiiutions in NEW York State and provides high speed access to many critical national resources in engineering, the physical sciences, social sciences, and libraries. In addition to continued partial funding of the original institutions, the proposal request partial funding (50%) for connections for 10 predominately undergraduate institutions in the State: Ithaca College, Manhattan College, Yeshiva College, West Point Military Academy, the New School for Social Research, Pace University, St. Lawrence University, Utica College, Colgate University, and Cold Spring Harbor Research Institute.***